EAGER: Computational Machine Design: The Eight-bar Linkage

The objective of this EArly Grant for Exploratory Research (EAGER) project is to develop a method of automatically designing manipulators using as many as eight bars in their linkage to perform a particular specified motion. The approach combines techniques of computational design with those of robotic systems to assist organization of the expanding options for both the design algorithm and the user. This approach forms the basis for a design system for eight-bar linkages, and may be extendable to 10 and 12-bar linkages. It is a high-risk high-reward effort that can yield the first systematic design methodology for eight-bar linkages.

The broader impact resulting from this work is the ability to design new and innovative complex linkage systems that are currently beyond our capabilities. This research also provides effective tools for the design of a new range of devices useful for automation, assistive technology, and a range of applications in aerospace and automotive vehicles.